Heterogeneous Nucleation During Solidification of Undercooled Liquid Metals

9308148 Perepezko This research explores kinetics of heterogeneous nucleation in undercooled liquid metal alloys. The approach to the kinetics evaluation follows two directions: experimental measurement and computer simulation. Droplet samples from the tin-antimony alloy system are emulsified in a stable carrier fluid and undercooled. Nucleation events during undercooling are followed by calorimetry and the droplet size distribution and volume phase fraction determined by quantitative image analysis. Kinetic and thermodynamic results are related to the microstructure and composition of the solidified droplets by employing scanning electron microscopy, energy dispersive spectroscopy, and X-ray diffraction. Computer simulation employs the Kinetic Monte Carlo method and addresses critical nucleus size, shape factors, and nucleation at moving boundaries as a function of time. %%% Nucleation is a physical phenomena of broad occurrence, playing an important role in metallic, ceramic, organic, biological, and aqueous systems. New insights should result from this research applicable to these systems. ***